Rational Assessment Design in a Disrupted Landscape: Chemistry Instructor Decision-Making in the Age of Generative AI

This project seeks to serve the national interest by generating foundational knowledge about how chemistry instructors design and adapt assessments in the presence of generative artificial intelligence (AI). Assessment is central to undergraduate chemistry education, serving to measure learning, motivate students, and certify that graduates have mastered essential disciplinary skills. Yet the rapid emergence of generative AI tools, which can now solve traditional chemistry problems with high accuracy, has destabilized long-standing assessment practices. Homework systems, textbook problem banks, and even instructor-written exam questions no longer reliably distinguish genuine student understanding from automated output. Chemistry instructors, who already design assessments under substantial constraints on their time, resources, and support, must now adapt to this disruption without sacrificing assessment quality or overburdening themselves and their students. The project will produce a national picture of current assessment practices, identify the constraints and motivations that shape instructor decisions, and characterize the strategies instructors use to sustain meaningful assessment. Because assessment practices directly affect what and how millions of undergraduate students learn, understanding how to support instructors in designing sustainable, valid assessments carries broad benefits for the quality of STEM education and for the preparation of a capable future workforce.

This project investigates undergraduate chemistry assessment through the complementary theoretical lenses of bounded rationality, which explains decision-making under cognitive and environmental constraints, and expectancy-value theory, which explains the motivational forces underlying instructor engagement. The specific objectives are to characterize assessment practices and contextual constraints in undergraduate chemistry; examine how instructors' expectancy, value, and cost judgments shape assessment design; document instructor decision-making processes in depth; and integrate these findings to inform future assessment reform. To accomplish these objectives, the project team will employ a sequential explanatory mixed-methods design. In the first phase, a national survey of approximately 1,000 chemistry instructors, stratified across research-intensive universities, primarily undergraduate institutions, and community colleges, will characterize assessment tools, institutional constraints, AI-related adaptations, and motivational factors. In addition, survey data will be analyzed using descriptive statistics, regression, and mediation analyses. In the second phase, semi-structured assessment design interviews with 30 to 40 purposively sampled instructors will use a modified think-aloud protocol to reveal the decision points, trade-offs, and heuristics instructors employ. Quantitative and qualitative strands will be integrated to produce an ecological model of assessment rationality that maps how specific constraints shape feasible assessment strategies. Project success will be assessed through an external advisory board serving as independent evaluators. Findings will be disseminated to researchers through peer-reviewed publications and conference presentations, and to practitioners through targeted briefs, infographics, and interactive workshops. This work will advance theory and methods in discipline-based education research and provide the empirical foundation needed to develop effective supports for sustainable, valid assessment in undergraduate chemistry in the age of generative AI. The NSF IUSE: EDU Program supports research and development projects to improve the effectiveness of STEM education for all students. Through the Engaged Student Learning track, the program supports the creation, exploration, and implementation of promising practices and tools.